RI: Small: A Unified Compositional Model for Explainable Video-based Human Activity Parsing

An ultimate goal of computer vision is understanding scene and activities from images and video. This task involves many perceptual and cognitive processes at various semantic levels. A next step beyond visual classification is visual interpretation, that is, to explain the relations among visual entities through visual inference and reasoning. Due to the enormous variability across instances of this problem, semantic parsing for explaining a visual scene and activities is highly challenging. This project studies how the structural composition of visual entities can be used to overcome the diversity in the visual scene and activities. It advances and enrich the basic research of computer vision, and brings significant impact on many merging applications, including autonomous or assisted driving, intelligent robots, and intelligent video surveillance. This research also contributes to education through curriculum development, student training, and knowledge dissemination. It includes interactions with K-12 students for participation and research opportunities.

This research is to develop a unified visual compositional model that can effectively learn complex semantic concepts in a scalable end-to-end fashion, while achieving good generalizability and providing explainable parsing of the visual data. The project is focused on: (1) a principled model and its theoretical foundation, by designing a stochastic grammar based on the probabilistic And/Or-Graph to model the structural composition; (2) an effective computational approach for learning and parsing, by exploiting data-driven pattern mining to discover structural components and by exploring how the patterns may be self-formed; (3) a solid case study on video human activity parsing and interpretation, by inferring the complex compositions of human actions, body movements, and interaction with the environment; and (4) tools and prototype systems for human articulated body pose estimation, contextual object discovery, and video-based human activity analysis and interpretation.